U.S.-France (INRIA) Cooperative Research: Tools for Port- able and Efficient Parallel Scientific Software

This three-year award will support U.S.-France cooperative research in parallel computing between research teams at the University of Tennessee and at INRIA's Rhone/Alps campus (French National Institute for Research in Computer Science and Applied Mathematics). The teams include Jack Dongarra on the U.S. side and Jean-Pierre Verjus, Yves Robert and Bernard Tourancheau in France. The objective of their research is to provide a software environment for the development of portable parallel programs on multicomputers and heterogeneous networks. They propose to develop efficient algorithms for library routines on distributed-memory multicomputers. This effort will involve implementation and experiment of codes and tools, and complexity analysis. The project takes advantage of U.S. and French complementary expertise and will benefit from French advances in software for parallel processing. The project may result in a set of tools for the development of portable data parallel programs.